Mathematical Sciences: NSF Young Investigator

This research, supported by a National Science Foundation Young Investigator award, studies Riemannian geometry, with emphasis on understanding how bounds on geometric quantities affect the local and global topological structure of metric spaces and Riemannian manifolds and understanding how geometric quantities relate to each other. The National Science Foundation Young Investigator award recognizes outstanding young faculty. This award recognizes the recipient's strong potential for continued professional growth as a research mathematician and for significant development as a teacher and academic leader.